U.S.-Norway Program: Dissertation Research in Biological Oceanography

9403610 Roman This award provides partial support for dissertation research expenses of a PhD student of Dr. Paul Roman of the Horn Point Environmental Laboratory of the University of Maryland. The graduate student, Ms. Juanita Urban-Rich, will carry out oceanographic research in cooperation with faculty of the University of Tromso and the University of Bergen, Norway. She will participate in a series of research cruises off Northern Norway related to two major Norwegian research programs on particle flux and the carbon cycle in Arctic waters. These will give her the opportunity to collect invaluable data for her dissertation research on the contribution made by zooplankton fecal pellets to particle flux and carbon cycles in different geographical locations. She will carry out experiments to measure the chemical composition and dissolution of particulate organic carbon to dissolved organic carbon from fecal pellets and "marine snow", an aggregate of organic and inorganic detritus. She hopes to determine whether the two forms of detritus contribute significantly different forms of organic carbon to abyssal waters and sediments as they decay, due possibly to different decay rates, different composition, or differences in the transformation of particulate to dissolved organic carbon. These data will be compared with data she will collect in the Arabian Sea under other sponsorship. Macrozooplankton fecal pellets and marine snow are important transporters of organic carbon as well as nutrients, pollutants and trace metals from the upper ocean layers to deep water and the sediments. However this contribution can take several paths and it varies seasonally. In addition to this contribution to vertical flux, they are an important food source for other animals. Increased knowledge of the composition and fate of these organic particles will contribute to improved models and understanding of global biogeochemical cycles.